Oscillations and Waves in Conductance-Based Neuronal Network Models

Rubin
0108857
This investigator develops and applies mathematical
techniques for the study of activity patterns in
conductance-based neuronal network models incorporating features,
such as continuous coupling, diffusive interactions, and
heterogeneity in parameter values, that have largely been
neglected in previous mathematical work on these systems. Many
of the mathematical results relate to the derivation and
subsequent analysis of subsystems of equations capturing dynamics
on disparate time scales. One challenge in this endeavor is that
the additional features considered prevent the application of
known methods that could otherwise be used to reduce the
subsystem sizes and thereby facilitate analysis. The particular
activity patterns that are investigated are sustained, localized
activity of cell populations in the thalamus involved in sleep
rhythms and in tracking head direction; wave propagation, block,
and reflection in inhomogeneous neuronal media such as branching,
thickening, or damaged neurons; and periodic and chaotic
oscillations in a heterogeneous population of respiratory
pacemaker cells in the brain stem. While this work is motivated
by particular neuronal systems, it provides new steps in
directions with broad relevance. Thus, the results of this
project yield insight into pattern formation and selection
mechanisms that apply in specific neuronal contexts but that also
constitute more generally occurring phenomena.
Neuronal networks of the central nervous system can
typically display multiple types of rhythmic activity, ranging
from periodic bursts of synchronized oscillations to traveling
waves of activity to more disorganized patterns. Many of these
forms of activity appear to be relevant to fundamental neuronal
processes. The overall goal of the investigator is to study
mathematically the oscillatory population rhythms and wave
propagation arising in certain models of neuronal networks, based
on systems involved in such disparate tasks as navigation,
respiration, and the generation of sleep rhythms. This work
elucidates the mechanisms that allow these networks to support,
and to modulate between, distinct activity patterns. These
results lead to conclusions about the roles of various
biophysical parameters in shaping network dynamics, with
individual contributions teased apart in a way that may be quite
difficult to achieve with a purely experimental approach. Such
findings can then serve as guideposts for future biological and
computational experiments.